Knowledge Discovery through Large-Scale Data Mining

The goal of this research project is to make feasible the extraction of answers to very complex queries, often called data-mining queries, from extremely large databases. Improvements along several lines are sought, including compilation of queries expressed as "flocks" of queries related by several parameters, extraction of relations by iterative search for patterns on the World-Wide Web, and extension of known techniques for finding associated data to detect correlations and causality in comparably large databases. The approach involves the exploration for new algorithms, their analysis, and their implementation in a series of tools for implementing user-specified queries. Anticipated applications include discovery of plausible relationships in scientific or engineering data and gathering, from large bodies of news articles or other text, useful knowledge, intelligence, and/or general rules. http://www-db.stanford.edu/midas